NSF CRCD: Chemicals From Biorenewables

This award provides funding to Iowa State University, Charles Glatz, Principal Investigator, for a three-year Combined Research-Curriculum Development award entitled, "NSF CRCD: Chemicals from Biorenewables."
This project will provide a unique and valuable experience for students by giving them an opportunity to work in multidisciplinary teams on cutting-edge problems involving biorenewables, while using novel problem-based learning approaches. The focus of this project will be on bringing important emergent areas from the development of biorenewable sources of chemicals into new and existing courses in the Chemical Engineering curriculum and to let students experience the differences between process and product development. The new material will be added mainly as a laboratory component offered in parallel with three existing and one new lecture course. The educational approach will be one of problem-based learning in multidisciplinary teams.